CAREER: Ensuring the Accuracy of Scientific Software: A Formal Approach

Scientific practice has been radically transformed by computation.
Many observers now place computational simulation on an equal footing
with the two traditional approaches to scientific discovery,
experimentation and theory. But while there are long-established and
rigorous criteria for validating experiments and mathematical
reasoning, the same is not true for simulation. Published reports of
simulation-based research typically say little or nothing about the
software, its qualities, or what was done to ascertain its
correctness. The software is rarely examined by reviewers or other
researchers, and in some cases is not even made available to them.
This situation is particularly troublesome in light of the substantial
evidence that scientific software is, in general, as unreliable as any
other type of software.

The research focuses on developing a set of integrated techniques for
the specification and verification of scientific software. Drawing on
ideas from model checking, symbolic execution, and other formal
methods, these will include: (1) new techniques to efficiently check
for the presence of deadlocks, race conditions, improper use of
parallel programming libraries, and other generic defects in
scientific programs, (2) techniques to specify and verify the order of
accuracy of numerical programs, such as those used to solve systems of
differential equations, and (3) new techniques to verify the
functional equivalence of two scientific programs, including programs
with unbounded loops, and programs with (shared-variable and/or
message-passing) parallelism. These techniques will be realized in a
new tool suite, the Toolkit for Accurate Scientific Software (TASS),
which will be made publicly available under an open source license.